Vascular Characterization with Optical Low-Coherence Techniques

9978820
Barton
The overall goal of the proposed effort is the development of an integrated system capable of imaging blood flow velocity, shear rate, perfusion, and vessel structure using optical low-coherence techniques. The significance of this effort lies in the potential to develop better vascular stents, grafts, and factors for neovascularization control. The proposed work will help elucidate the mechanisms of intimal cell proliferation and new blood vessel formation. This will be accomplished with least-invasive procedures that provide physiological flow information with unprecedented resolution, and anatomical information previously only available by histology.

A miniaturized, flexible catheter delivery system, hardware modifications, and improved signal processing will be incorporated into to an existing optical coherence tomography system. With these augmentations, the vascular optical coherence tomography (VOCT) system will be able to provide important vascular system information including vascular structure, blood flow velocity and shear rate. Additionally, depth-resolved imaging of perfusion in vascularized tissues will be performed.